Waksman Student Scholars Program

*** Pallrand Rutgers University seeks to provide a four-week, summer commuter, Young Scholars program with follow-up during the academic year in the biological sicences for 28 students entering grades 10,11, and 12. The program provides students opportunities to work on a research project that is intellectually challenging and one that is not ordinarily a part of the school curriculum. Students will be involved in an authentic, ongoing investigation in molecular biology while they participate in a research problem under current study by the scientific community. Additional experiences include structured field trips, classroom lectures and discussions, and hands-on laboratory investigations. A unique feature of the Waksman Student Scholars Program is the sustained academic year involvementof students, teachers, scientists, and project associates. ***